RUI: Synthesis of Core Modified and Pi-Extended Porphyrinoids

Dr. Timothy Lash of Illinois State University is exploring the synthesis, characterization, and reactivity of conjugated structures that resemble naturally occurring porphyrins. Porphyrins have applications in diverse areas, including materials science, catalysis, and medicine. True porphyrins have 4 nitrogen atoms within a central cavity that allow the structure to bind metal ions. However, an important class of related compounds called carbaporphyrins have a carbon atom in place of one of these nitrogens. Carbaporphyrins have modified properties that often complement those of naturally occurring porphyrins. This project aims to develop efficient routes to novel carbaporphyrin-type systems that have unique reactivity and unusual properties. The results will increase our understanding of fundamental chemistry concepts such as aromaticity, a feature that often leads to enhanced stability. Furthermore, carbaporphyrins act as ligands that form stable complexes with important catalytic metals such as palladium and rhodium. The properties exhibited by these systems show promise for advanced manufacturing applications including medicine, sensor development, and catalysis. These projects will provide an excellent environment for training undergraduates and MS level graduate students in the field of organic synthesis and exposes them to the multidisciplinary nature of modern scientific research.

In this research, syntheses of new porphyrinoid structures by ‘2 + 2’ and ‘3 + 1’ MacDonald-type condensations is proposed, including azaphenaliporphyrins, hydroxynaphthiporphyrins, and quinone-fused carbaporphyrins. The latter structures have dramatically altered chromophores with strong absorptions throughout the visible region. A route to carbachlorins and related structures will be developed using cyclopropane dialdehydes as critical intermediates in the ‘3 + 1’ methodology. The effects due to strongly electron-withdrawing units will be investigated and examples of nitrobenzo- and nitronaphthoporphyrins will be synthesized. A series of indenoporphyrin analogues will be prepared by first generating aryl substituted intermediates and carrying out oxidative cyclizations (Scholl reaction) to generate the conjugated structures. Indenoporphyrins introduce competing aromatic and antiaromatic conjugation pathways and possess unusual spectroscopic properties. Insertion of phosphorus atoms into carbaporphyrin structures will be examined by either introducing a phosphole unit or a cyclopentadienyl ylide and it is anticipated that these novel structures will exhibit unique coordination chemistry.